Finding the Pattern

9705458 McConnell Museum of Science will develop a 4500 sq. ft. exhibit "Finding the Pattern". The primary objective is to develop activities and programs that encourage visitors to practice scientific thinking skills in settings that have interdisciplinary science content. The main component is an activity area that will encourage visitors to observe, compare, and sort objects and phenomena in meaningful ways; help visitors recognize that systems of organizing and classifying objects and phenomena reveal underlying meaning; provide visitors with opportunities to practice answering questions and solving problems based on museums collections; and encourage visitors to search for the "hidden" meaning in things around them. The exhibit will be composed of three overlapping areas: 1) the sorting area, 2) the mystery area, and 3) the open collections area. This project is one of the six science activity centers that have been described in the museum's long-range plan; two activity centers/exhibits have been completed. The impact of "Finding the Pattern" will be extended via the museum's web site. Activities that employ the kinds of scientific thinking skills targeted in the exhibit will be developed to engage informal learners at home. Complementary programming linking the exhibit with formal education will include the development of teacher workshops and programs for school groups. Teacher workshops will be developed in consultation with groups of Project PALMS teachers. The activities will be accessible to individuals with disabilities. They plan to open the exhibit in the fall of 2000.